Confirmation and Extension of Magnetospheric Radar Observations at SURA

Confirmation and Extension of Magnetospheric Radar Observations at SURA This proposal is to initiate the first step toward realizing the transition of a powerful Soviet military facility to the peaceful study of the geospace environment, the domain of solar-terrestrial science. We envision that the results of this study will reinforce efforts towards a major long-range opportunity for joint US/Russia/Ukraine development of a magnetosheric radar facility. In addition, it seems possible that the same facility could be used as a powerful mesosphere-stratosphere-troposphere (MST) facility. Strong evidence exists that Soviet researchers directly detected, through remote sensing with a magnetospheric radar, the origin of the auroral borealis. This region has only been penetrated before by a few satellites which, due to some intrinsic limitations of spacecraft, provide inadequate data in the key regions. We propose to test, and potentially confirm, this important new tool for ground-based access to the geospace enviroment.